Three-Dimensional Modeling of Fluid and Thermal Transport within the Barbados Accretionary Complex

Screaton

The PIs will develop a 3-D model of the fluid and thermal flow along strike in the Barbados Accretionary Complex considering both thermal and geochemical transport. The modeling effort will be directed at understanding of the interrelationships between tectonic and gravitational stress, fluid flow and thermal and geochemical transport in actively deforming sediments. The application of 3-D modeling in this and other complexes will assist in the planning of future drilling and seafloor observatory projects and in development of global fluid, heat and geochemical budgets.